Using and Teaching the GPIB in the EE Curriculum

This workshop is considering methods, problems, and curricula changes necessary to use and teach the General Purpose Instrumentation Bus (GPIB) laboratory in the undergraduate EE curriculum. The workshop stresses the smoothe integration of GPIB equipment and computer simulation into sophomore and junior courses. During the workshop, each participant is developing an experiment of his/her own design; during the subsequent academic year, each participant writes a report on the GPIB activities at their institution.//